A Theoretical Study of Climate Dynamics

Wang
0072612
The investigator studies the structure, its robustness and
stability, and the transitions of large scale geophysical fluid
flows, to arrive at a better understanding of the prediction and
predictability of these flows relevant to the typical sources of
low frequency variabilities in climate. The work studies specific
topics in two areas: 1) theoretical issues of the primitive
equations, and 2) the presence, sensitivity and robustness of
interannual variability characteristics to changes in model
parameters in the underlying physical space. In Area 1, the
investigator studies the primitive equations of large scale
ocean/atmosphere flows. Specific problems include stability and
bifurcation issues of the primitive equations and related simpler
models, especially in connection to climate low frequency
variabilities. The main objectives in Area 2 are to classify
typical large scale atmosphere/ocean circulation flow patterns
associated with boundary layer phenomena, and to study their
structural bifurcations. Part of the work in this area is based
on a new geometric theory developed recently by the investigator
and T. Ma. The investigator uses a combination of physical
modelling, asymptotic methods, rigorous mathematical theory, and
large scale computing to yield new insights into physical
phenomena. The work involves specific collaborations with
atmosphere/ocean scientists.
The primary goal of this project is to document, through
careful theoretical studies, the presence of regular interannual
and interdecadal variability in the ocean basins adjacent to the
North American continent, to verify the robustness of this
variability's characteristics to changes in model parameters, and
to help explain its physical mechanisms. The thorough
understanding of this variability is of the essence in
determining the climate system's predictability and prediction on
subcontinental and smaller spatial scales, for time scales that
equal and exceed a few years. The associated phenomena include
the double-gyre wind-driven ocean circulation and the El
Nino-Southern Oscillation (ENSO) phenomenon, which dominates
inter-annual climate variability over much of the Pacific Ocean,
and hence the world. The studies could lead to improved
predictions of weather, climate, and environmental phenomena.